Organic Conductors in High Magnetic Fields: A Theoretical Study

9417451 Yakovenko The research involves the theory of quasi-one-dimensional organic conductors with the emphasis on their behavior in strong magnetic fields. These artificially synthesized conductors demonstrate metallic, insulating, superconducting, charge- and spin-density wave, and Hubbard paramagnetic insulator states. Their rich physical behavior, especially in magnetic fields, and its relation to high temperature superconductors and the quantum Hall effect makes these materials very desirable objects of study. Proposed research includes the quantum Hall effect of a moving density wave, "hot spots" on the Fermi surface, the fraction quantum Hall effect, localization and the Hall effect in high magnetic fields, the structure of the spin density wave order parameter, and the effects of superstructure produced by the orientational ordering of anions. Close connection with experimental studies is anticipated. %%% This work involves theoretically studying special large molecules that are stacked over each other and form parallel chains which are good conductors of electricity. These materials have a wide variety of interesting properties, including superconductivity, and are therefore known as exotic materials. Developing a theory of these materials has particular advantages because of their chain-like character. The investigator is an expert in these materials and is highly regarded in the community. He especially wants to focus on the properties of these materials in a magnetic field and to connect with experimental studies. Materials such as these often demonstrate completely unexpected properties, so their study has the possibility of resulting in applications which cannot currently be predicted. ***